MII: Planning for a Research Program in Intelligent Mobile Information Systems

9906589
Kim, Jung H.
Alexander, Winser E.
Lebby, Gary
Sherrod, Earnest
North Carolina A & T State University

Planning for a Research Program in Intelligent Mobile Information Systems

This planning MII award will contribute to strengthen the development of a continuing MII proposal at NCAT State University by:
Increasing participation of minority students in research activities to stimulate students' interest in advanced degrees in intelligent mobile information systems
Strengthening instructional and research capabilities of the department
Establishing substantial links with other institutions and labs
Planning for the development of a successful MII continuing proposal utilizing the strengths in both EE and CIS departments

The award will also be used to initiate the development of a degree in Computer Engineering. The proposal identified the following research projects where efforts will be made to continue involving and retaining more students:
Intelligent Video Coding for Heterogeneous Networks
High Performance Special Purpose Computer System
Teleoperation over Heterogeneous Networks

While increasing the participation of women and minorities in graduate education, the project will facilitate, enhance, and intensify research in CISE areas. Through this effort, NCAT is expected to develop further its computer engineering research capabilities involving minority students in greater numbers, paving the way for the conferring of more doctoral degrees to under-represented groups, particularly African Americans and women in Computer Information Science and Engineering. It is hoped that through these efforts, the nation might find a successful model that will help in building a better racially and ethnically balanced technological enterprise for the benefit of its present and future generations.